Engineering Equipment Grant: Data Acquisition/Computation System

A high-speed, multichannel data acquisition and computation system is purchased. The equipment is used to assist in research in the fields of noise control in machines, propagation of sound across open terrain and through vegetation, and the use of high intensity sound to collect submicron particulates from coal combustion and in dust control of industrial processes.